Project ATMOSPHERE: Providing the Nation's Precollege Teachers of Grades 5-9 with Instructional Resource Materialsand Learning Experiences in the Atmospheric Sciences

Project ATMOSPHERE will over a five-year period (a) establish a permanent national network of precollege Atmospheric Education Resource Agents, (AERAs) (b) produce scientifically accurate, up-to-date, and pedagogically sound resource and instructional materials aimed at teachers, and (c) disseminate and implement these materials. It is part of a national program of the American Meteorological Society designed to encourage teachers, grades 5-9, to use the atmospheric environment to heighten interest in and relevancy of science. An extensive training program followed by annual renewal sessions will produce a steady- state network of 70 to 80 AERAs. With representation in every state, the network will build on the strengths of resource agents who come to the project as recognized master teachers and professional leaders in their home areas. They will participate in project materials development and will play major roles in disseminating information and implementation activity. Phase I atmospheric education will be done at National Weather Service Training Centers (NWSTC) workshops. Drawing teachers from these; 60 AERAs will receive Phase II training in year 1 in this project's 2-week workshop. In year 2, 3, 4, and 5 60-80 AERAs will receive Phase II and Phase III training at 2-week workshops. Workshop sites are Boulder, CO and Norman, OK in alternative years. In year 3, 4, and 5 there will be 1-one week follow-up workshops for 55 teachers. A minimum of 2 peer-led workshops will be delivered by increasing numbers of AERAs each year, beginning with 24 teachers in year 1 and increasing to 94 teachers by year 3. The teacher enhancement materials to be developed include 200 reference and resource papers on atmospheric environment topics, annually-published newsletter/information packets, and 10 self-contained instructional modules. Dissemination will range from mailings of materials to the offering of informational sessions by AERAs. The instructional materials will implemented in workshops arranged and conducted by AERAs. Approximately 1,000 information and training sessions will take place with an estimated 20,000 teachers enrolled. The Project Director for this comprehensive project is Dr. Ira Geer. Cost-sharing equals 75% of the NSF award.